Sparse Matrix Computation Research for Power System Application

9216308 Alvarado This research concerns topics in sparse matrices. The first is the use of iterative methods based on approximate partitioned inverses (the explicit inverses of the L and U factors of A) used as preconditioners for iterative solvers. Another research topic is sparse matrix primitization: it is possible to enlarge the size of a sparse matrix and improve its condition number as well as reduce computation and enhance parallelism. A third topic is on- the-fly compensation. This uses one of several variants of the Matrix Inversion Lemma. The fourth research topic is a further look into ordering algorithms. Of particular interest is the investigation of methods suitable for augmented eigenvalue formulations and for orthogonal factorization. ***